Collaborative Research: Does larval transport or physiological tolerance set the southern range boundary of a northern blue mussel?

Intellectual Merit
This project will test whether the southern range boundary of a northern blue mussel, Mytilus trossulus, is determined by limitations on the dispersal of larvae, or the physiological tolerance of larvae and/or juveniles. Mytilus trossulus and its sister species, M. edulis, co-occur throughout the Canadian maritime provinces and the northern Gulf of Maine. While the abundance of M. trossulus decreases abruptly south of the Canadian border, M. edulis ranges south to North Carolina. Work to date has demonstrated that: 1) Adult M. trossulus in northeastern Maine inhabit coastal sites, islands, and man-made structures that are within the colder water of the Eastern Maine Coastal Current (EMCC). 2) Drifters released in the EMCC rarely enter nearshore waters to the south, suggesting that across-shelf transport is extremely limited. 3) Larvae of the two species may differ slightly in thermal tolerance, and some evidence suggests that tolerance may also be affected by nutritional status. 4) Mytilus trossulus juveniles transplanted within the northeastern Maine region, but outside of the EMCC, have high survivorship, while transplants further to the southwest suffer high mortality. In combination, these results suggest that larval transport sets the proximate range boundary within northeastern Maine (on a scale of 10 km), but thermal tolerance would ultimately limit the distribution on a larger spatial scale (200 km).

This research project is designed to test this pair of hypotheses via a combination of field and lab experiments. Satellite drifters equipped with temperature loggers deployed in and out of the EMCC during the season of M. trossulus larval dispersal (mid-June to mid-August) will be used to quantify the physical flow fields and temperature regimes during larval dispersal. Drogues will allow us to assess whether larvae at different depths may experience different flow fields. Data from hydrographic surveys, combined with regular spatial and temporal sampling of mussel larvae and new settlers, will be used to assess possible associations between larval and post-settlement stages and different water masses. The physiological tolerance of new settlers will be assayed via transplants to sites in and out of the EMCC. Finally, laboratory growth and survival experiments will assay larval performance in different thermal and feeding regimes. The investigators will use molecular markers to identify the morphologically indistinguishable larvae and settlers of these sibling species.

Broader Impacts

This project will provide training for one MS and one PhD student, and several undergraduates. The PIs are at institutions that emphasize undergraduate and graduate research, and our project will provide numerous student opportunities for field and laboratory research in oceanography and benthic ecology. Such research opportunities are likely to attract a number of students who would otherwise pursue careers in biomedical research. The Gulf of Maine is home to a thriving Mytilis edulis aquaculture industry, and M. trossulus is a commercially inferior species - growers are concerned about its possible spread. Hence a better understanding of the factors determining the range boundary of this species will help growers avoid M. trossulus spat. Results will be disseminated to enhance communication with the Maine aquaculture community. All of the fieldwork will be conducted in a region of Maine facing great educational challenges; teachers from area schools will be recruited to assist with summer field and laboratory work.